Measurement and State Optimization for Quantum Detection and Estimation

Quantum technology could revolutionize sensing and communications by leveraging unique
properties of quantum mechanics. Specifically, quantum sensing has the potential to make a wide variety of measurements with unprecedented precision, and quantum communication could enable ultra-secure, unhackable data networks. The theoretical framework that underpins quantum sensing and quantum communications is the quantum detection and estimation theory. In particular, quantum detection, also known as quantum state discrimination, is the fundamental process of extracting classical information from quantum systems and underlies a variety of quantum information processing applications. Moreover, quantum parameter estimation, also known as quantum metrology, holds the promise of enabling transformative sensing and imaging applications.

This project addresses the design of various quantum detection and estimation schemes, using both classical optimization tools and a hybrid quantum-classical platform, the parametric quantum circuit, that finds useful applications in the current noisy intermediate-scale quantum (NISQ) era. It aims to develop advanced quantum algorithms that underpin both quantum sensing and quantum communication systems, aligning well with the National Quantum Initiative. The education components of the project address the current talent gap in quantum technology by training the next-generation workforce with interdisciplinary skills in both quantum science and electrical engineering.